Parallel Processing in Power Systems

The problem of determining certain characteristic values of large dynamic systems is computationally complex and time consuming. New developments in computer hardware together with configuration of that hardware show a high degree of promise relative to the computation of these important design values. This proposal addresses new innovations in both configuration and algorithms specifically geared for the large-scale problem.